Mathematical Sciences: Request for Scientific Workstation Network

This is a grant under the Scientific Computing Research Equipment for the Mathematical Sciences program of the Division of Mathematical Sciences. It is for the purchase of special purpose equipment dedicated to the support of research in the mathematical sciences. In general, this equipment is required by several research projects, and would be difficult to justify for one project alone. Support from the National Science Foundation is coupled with discounts and contributions from manufacturers, and with substantial cost-sharing from the institution submitting the proposal. This is an instance of university, industrial, and government cooperation in the support of basic research in the mathematical sciences. The equipment is for a small network of workstations that will be used to support research in the following projects; The Solution of Linear and Nonlinear Integral Equations on Surfaces in Space; Singular Configuration Manifolds of Mechanical Systems; The Study of Ring Theory, Algebras, and Modules; Computational geometric Topology; and Operator Theory and Operator Algebras.